Internet Access

Morrison Institute of Technology will use this grant to connect to the Internet. They have proposed to use CICNet as their Internet service provider. The students and faculty of Morrison Institute of Technology need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.